Discovery and Optimization of Hetergeneous Catalysts Using Combinatorial Chemistry

Professor Selim Senkan will develop the techniques of combinatorial heterogeneous catalysis. In particular, he will implement automated fast parallel synthesis of powder catalyst samples employing traditional impregnation methods. The high-throughput screening of activity and selectivity will be done by analyzing the gas phase with resonance-enhanced multiphoton ionization (REMPI) followed by detection of photoelectrons of photoions with a microelectrode array. The technique will be tested by optimizing the activity and selectivity of multimetallic catalysts for cyclohexane dehydrogenation, containing Pt and elements of Group IA-VIA, including rare earths.